Conference: Support for the 1995 Gordon Research Conference on Optical Information and Holography to be held in Plymouth, NH on June 26-30, 1995

9526735 Storm NSF funds will provide partial support for seven student attendees of the 1995 Gordon Conference on Optical Information Processing and Holography. The Conference in 1995 will stress optical memory, displays for virtual reality, and high-speed optical data acquisition. This is an unusual conference in that there is time for in-depth, informal, off-the-record, discussions and provides an opportunity for the younger researchers to get to know the others. The participants are leaders in the field, younger scientists, and students who are doing research on the cutting edge topics of the field. ***